CPEP SUMMER PROGRAM

The Connecticut Pre-Engineering Program, Inc. (CPEP) Summer Program at Trinity College offers a five-week program which integrates instruction in the sciences, mathematics, computer applications, guidance and career counseling and language arts/study skills. Each year forty underrepresented minority rising eighth and ninth grade students take grade appropriate courses and participate on field trips. The program employs a hands-on approach to mathematics and science education. Learning experiences are designed to involve students actively in science inquiry and mathematics as an integral aspect of investigation. Professionals from the science, engineering and mathematics community serve as role models and mentors.